STTR Phase I: Smart IoT Wearable for Remote Monitoring and Assessment of COVID-19 Patients (COVID-19)

The broader impact /commercial potential of this Small Business Technology Transfer (STTR) Phase I project will help COVID-19 patients with a lower burden to the medical system. This project will lead to a low-cost wearable internet of things (IoT) system to enable improved telemedicine. The collected data can be leveraged for public health purposes. The proposed project will develop telemedicine software tools using real-time physiological data from a wearable that is affordable, comfortable, non-invasive, washable, and reusable.

This STTR Phase I project will develop a risk stratification mechanism for patients who experience signs and symptoms suggestive of COVID-19 such as dry cough, shortness of breath, and a fever. Such type of lower respiratory tract illness could be managed at home without resorting to hospital admission. Our objectives include development of: 1) a multi-modality system for diagnosing illness conditions for COVID-19 and similar contiguous diseases; 2) a software telemedicine interface with algorithms that learn and assess the need for further hospitalization; 3) a pilot study.